SSC: "Tidewater Summer Science Camp"

The Tidewater Summer Science Camp is a four-week summer enhancement project in mathematics and science at Norfolk State University for minority 7th and 8th grade students in the Tidewater, Virginia area. The major objective of the project are to involve students in interesting investigations and projects involving real-world science problems, to increase their knowledge, skill, and confidence in mathematics and science, and to increase the likelihood that they will pursue mathematics/science careers. Students are provided hands-on, scaled-down versions of science problems in a laboratory setting; they use graphing calculators and computers to aid in the mathematical analysis of science problems; they go on field trips to obtain first-hand exposure to science practitioners; and they are involved in intensive career exploration and curriculum counseling. A follow-up component of the project includes Saturday sessions throughout the academic year. The program's ultimate goal of significantly increasing the number of the participants selecting mathematics/science careers is monitored by maintaining a data base of the participants' progress through high school and beyond. ***